Hardware Implementation of Neuron Nets

The proposal describes a planned two-day workshop on "Hardware Implementation of Analog Neuron Nets". The computational methods employed by neuron nets have received recently considerable attention. Whereas most of the research effort in this area has been directed toward theoretical work, actual construction of analog neural machines is still very much in its infancy and is being pursued in only a few laboratories. This workshop is specifically intended to bring together key investigators in this field with the aim to discuss critically the feasibility of different approaches, to evaluate new technologies and to foster collaboration between workers in the field. The agenda will be restricted to analog designs and not include neural net simulation on digital architectures. The workshop shall focus on device implementation as well as system design. The format of the meeting would emphasize informal discussion.